MRI: Acquisition of Digitally-Enhanced NMR Data Systems

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Alabama in Tuscaloosa will acquire digitally-enhanced data collection and processing systems for nuclear magnetic resonance (NMR) equipment. This equipment will enable researchers to carry out studies on a) macromolecular protein and DNA/PNA solution structure determinations; b) dendrimer characterizations; c) paramagnetic chemical systems; and d) synthetic chemistry.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including biochemistry and materials chemistry.